Quantization of Singular Spaces

Abstract

Award: DMS-1066222
Principal Investigator: Markus J. Pflaum

The award serves to support participants from the U.S. at the
conference and school "Quantization of Singular Spaces" in
December 2010 at the Center for Quantum Geometry of Moduli Spaces
in Aarhus, Denmark.

The supported conference will be aimed at recent approaches to
quantization of singular spaces. The goal of the conference is to
encourage cross-fertilization among various approaches, to bring
seemingly independent lines of research together, and to consider
where the field can go in the future. It is expected to give a
strong impetus to innovative work in the field. In addition, the
workshop is aimed at training young researchers in the field by
internationally renowned experts. A mathematically rigorous
theory of singular quantization would have considerable
repercussions. For example, in mathematical physics a better
understanding of the nonperturbative structure of gauge theories
would come within reach, which would be essential preparation for
the construction of quantized Yang--Mills theories and grand
unified theories. In mathematics, new index theorems for
singular spaces would emerge, among other.

Support for the conference will ensure that experts from the
U.S. working in the field of quantization theory will be able to
significantly contribute to the conference and will profit from
the exchange of cutting-edge research. Moreover, support for the
school and conference will enable U.S.-based young researchers to
participate in the special training which will be offered through
three minicourses on foundational material and recent
achievements in the field during a school preceeding the
conference. The conference and school in Denmark will also
strengthen US-Scandinavian research connections and will lead to
new scientific collaborations.

Conference webpage:

http://qgm.au.dk/events/dec-2010-conference-quantization-of-singular-spaces/